DLI- Phase 2: A Software and Data Library for Experiments, Simulations, and Archiving

This proposal is to build, maintain and evaluate a a software and data
library for experiments, simulations, and archiving primarily for the
social and economic sciences. It will serve as a "Web-Lab Library," and
multi-functional knowledge center. There will be a library of software for
experiments at the Website to support theoretically driven experimentation
and a library of simulation programs for research and education. Data from
current experiments will be recorded and automatically archived. The
archiving format will be extensible to support inclusion of data from prior
experiments. Innovative data retrieval and display systems will be
developed.

The Web-Lab Library will be developed by a Hub at the University of South
Carolina and two associated Collaboratories at the University of Iowa and
Georgia State University. The Hub supports programmers with substantial
knowledge and experience of social science research. The social scientists
at the Hub and Collaboratories will develop designs for the Web-Lab
Library. All will conduct experiments-at-a-distance to test software as it
is developed